Theory of Fluid Mechanical Stimulation of Hair Cells

This theoretical modelling study is on the fluid mechanics which govern the motion of sensory receptor elements in the inner ear. The inner ear has auditory organs for hearing, and vestibular organs for postural equilibrium. All the receptor cells of the ear (and of the lateral-line organs of aquatic vertebrates) are hair cells, named for their microscopically small bundles of hairlike structures called cilia that extend into the fluid of the ear. In hearing, when sound enters the ear, mechanical linkages convert the sound pressure to displacement of fluids and membranes in chambers of the inner ear. Interaction of the fluid with the ciliary tufts involves mechanical forces that are important to understand at the microscopic level, to relate these forces and displacements to the activation of the sensory receptor cells. These theoretical studies will assess how motion of the hair bundles is affected by 1) fluids of the inner ear; 2) hydro- dynamic coupling to nearby structures such as membranes; 3) hydrodynamic interactions between neighboring hair bundles; 4) the shape of the hair bundles; and 5) mechanical properties of hair bundles and the nearby membranes. The proposed theoretical studies will involve both mathematical analysis and numerical studies using a variety of digital computers (including personal computers, minicomputers, and supercomputers). The approach is to examine solutions of the euqations of fluid motion for a succession of geometries, each designed to reveal the role of a key structural feature of hair cell organs. The goal is to understand the motions of hair bundles in terms of the underlying physical mechanisms, and so understand the role of mechanics in the sensory reception necessary for hearing and equilibrium.